Inner Model Theory and Descriptive Set Theory

Steel will work on the problem of constructing canonical inner models
for large cardinal hypotheses, and on related problems in pure descriptive
set theory. One very well known and central problem in this area is
whether the Proper Forcing Axiom is equiconsistent with the existence of a
supercompact cardinal. A solution to this problem is probably still far
off, but Steel has recently made some progress using the powerful and
flexible ``core model induction" method. He intends to pursue and develop
this method further, as it applies to the Proper Forcing Axiom, and in
several other contexts as well. This program leads naturally to a number
of questions concerning the relationship between canonical inner models
with Woodin cardinals and the derived models of the Axiom of Determinacy
which are associated to them. Steel has some results on this connection,
and plans to investigate the area further.

Much of set theory is motivated by the simple question
``What are the proper axioms for mathematics?".
Mathematicians
prove things for a living; what should they take as their
common assumptions in these proofs? In the period 1905-1927, Russell,
Zermelo, Fraenkel, and Skolem
isolated an elegant list of basic statements about sets, expressed
in the language of set theory, and showed that from these axioms
one could derive all of the mathematics of the time. This system of
axioms is now known as Zermelo-Fraenkel Set Theory with Choice,
or ZFC. While there is still no hint of a mathematical statement which
cannot be expressed in the language of set theory, we have
discovered that ZFC is incomplete in important ways. A
surprising number of quite basic questions about sets in general
are not decided by the axioms of ZFC; moreover, many of the
more abstract questions of analysis, algebra, and topology are
similarly left undecided. This leads to Godel's Program, first formulated
by Kurt Godel in the late 1940's:
Decide
mathematically interesting questions
which are independent of ZFC in well-justified extensions of
ZFC. There have been great successes in this direction obtained
by adding ``large cardinal hypotheses" to ZFC.
Such hypotheses
assert the existence of sets whose cardinality, or size, is
inaccessible from below in ever stronger senses. Possibly our deepest
understanding of large cardinal hypotheses
comes from the inner model program. This program attempts to
associate to each large cardinal hypothesis H a canonical minimal
universe of sets (or ``inner model") in which H is true. The stronger
H is, the largere this universe must be.
The inner models
we have so far constructed have internal structures which
admit a systematic, detailed analysis, a ``fine structure theory"
which gives us a very good idea as to what these universes
look like. Inner models are crucial in several
basic uses of large cardinal hypotheses to settle questions
left undecided by ZFC. Steel will focus his efforts on furthering
the inner model program.